Acquisition of Microscopy Equipment

9317129 Hanan This award provides one-half the funding necessary for the acquisition of an optical microscope system for the isotope geology research group in the Department of Geological Sciences at San Diego State University. The institution is committed to providing the remaining funds required. The microscope equipment is needed for mineral sample selection and preparation prior to isotope analysis. ***